Luminescence Studies of Novel Organo Gels with a "Stacked" Phenol Microstructure

9707943 Waguespack This research planning grant for women scientists and engineers entitled Luminescence Studies of a Novel Organo Gel with a "Stacked" Phenol Microstructure will utilize luminescence studies to explore low dimensional energy transfer pathways exhibited by these gels. Reaction centers that are created by doping the gel with photoactive molecules such as 2-naphthol or pyrenol will provide an opportunity to study the luminescent reaction center and any low dimensional energy transfer to another intercalated molecule. Laser lifetime decay curves will be compared for the luminescent gels and one dimensional solid crystals. %%% These novel gel systems have wide application in materials science as materials for temperature and moisture sensing. Furthermore, the highly ordered microstructure can be used to synthesize highly ordered phenolic polymers, polymer- ceramic composites, and semiconducting nanostructures such as quantum plates, wires or dots. ***